Resource allocation through systematic codon usage bias to develop robust engineered HEK293 cells

Mammalian cells play an important role in producing vaccines and other protein therapies. Overproduction of these products stresses the cells. That stress can reduce productivity and lead to cell death. It can also lead to genetic instability, making sustained production less probable. A human cell line (HEK293) is a production platform for many FDA-approved therapeutics. The codons used for specific amino acids will be varied to determine how those choices impact the allocation of protein synthetic resources in HEK293. The findings will establish new design principles for durable, high-performing engineered cells. Additionally, the project will support workforce development by training undergraduates, graduates, and high school students.

This project will develop a quantitative framework for balancing translational resource demands between endogenous and heterologous gene expression in HEK293 cells. The approach will be to exploit the degeneracy of the genetic code. The project will test the hypothesis that transfer RNA pools are a key limited cellular resource, and that individual codons differ in their translational supply, demand, and unused capacity. In Aim 1, the researchers will perform a systematic sensitivity analysis of the 61 sense codons by measuring the fitness cost and recombinant protein expression capacity associated with individual codons and codon combinations in HEK293 cells. This analysis will identify codons that access excess translational capacity, reducing competition for translation of essential host genes. This will lead to a new recoding scheme that minimizes expression burden while maintaining high protein output. In Aim 2, the researchers will evaluate the long-term genetic stability and robustness of different coding schemes by tracking the frequency of loss-of-function mutations in recombinant genes over extended culture periods. The hypothesis is that coding schemes that minimize host burden will be more resistant to genetic drift. In Aim 3, the performance of optimized coding schemes will be validated in a scalable production environment by culturing engineered HEK293 cells expressing erythropoietin in automated stirred-suspension bioreactors. This aim will test whether reducing fitness costs through informed codon selection improves volumetric productivity, robustness, and stability under industrial conditions. Overall, this work will establish translational elongation as a manageable control point for engineering stable mammalian synthetic biological systems and will provide general design rules for codon optimization that consider both expression output and host cell fitness, advancing biomanufacturing capabilities.